SBIR Phase I: A Smart Disposable Plastic Lab-On-A-Chip for Point-Of-Care Monitoring of Cardiac Markers

This Small Business Innovation Research (SBIR) Phase I project proposes to develop a rapid and reliable point-of-care system for detection of cardiovascular disease and myocardial infarction biomarkers. The biochip proposed in this work could significantly reduce the detection time while simultaneously detecting multiple cardiac markers.

The commercial application of this project will be in the healthcare equipment market aimed at emergency monitoring and care.